Research Experiences for Undergraduates in Micro-Engineered Ceramics

9424129 Datye This REU Site award provides an opportunity for eight undergraduate students at the junior or senior level in chemistry or chemical engineering, selected from institutions other than the University of New Mexico, to work with faculty, graduate students, and postdoctoral associates within the Center for Microengineered Ceramics at the University of New Mexico on numerous collaborative research projects in advanced materials processing during a ten week summer period. The research focus is on synthesis, processing, and characterization of advanced materials, such as ceramic powders, thin films, membranes, absorbents, catalysts, and sol-gel synthesis of oxide and nonoxide ceramics. %%% This program provides an invaluable opportunity for undergraduates to gain insight and experience working on challenging, complex interdisciplinary problems in materials processing.